ITR/SY: Optimization of Network Topology Design and Management

The process of designing or upgrading a large-scale broadband
communication infrastructure involves solving several optimization problems, including
the problems of optimum topology design, server placement, distribution
and replication of data between the servers, and fair division of
limited network resources (e.g. bandwidth, CPU cycles, etc.) among the users. As
networks become larger and more complicated, it becomes imperative to
use mathematically sound, scalable methods for solving the above problems.
The goal of this project is to develop and implement such methods.

One of the main thrusts of the project is development of new approaches
for network design and sizing. In particular, the project focuses on
development of optimization techniques where the goal is to construct a low cost
topology, choose optimum locations (and sizes) for servers (e.g. web
caches, application servers, wireless hubs, etc.), and decide how to
replicated the data. A related problem is network
expansion/augmentation, where the goal is to decide (online) where to
place new equipment and to choose which new links to lease in order to
satisfy the increased demand. Due to economies of scale, topology design
and augmentation problems have concave costs structure and hence can not
be solved by classical flow-based approaches. The investigators work on
developing principled approaches for solving the above problems and on
designing and implementing a set of tools that can be used in the
planning and network management process.